Workshop on Equivariant Gromov-Witten Theory and Symplectic Vortices; July 2009, Luminy, France

Abstract

Award: DMS-0835558
Principal Investigator: Christopher Woodward

Algebraic geometry, symplectic geometry and low-dimensional
topology have been revolutionized in recent years by the
introduction of holomorphic curve techniques. This workshop, to
be held July 6-10, 2009, at the CIRM (Luminy) conference center,
concerns equivariant generalizations of invariants defined by
holomorphic curves. In Gromov-Witten theory, equivariant
invariants have been extensively studied by Givental and others,
in the sense of integrals of equivariant cohomology classes over
moduli spaces of stable maps. The focus of the workshop will be
on the following more sophisticated version of equivariant
Gromov-Witten theory: the study of moduli spaces of maps to the
stack-theoretic quotient of, say, a smooth projective variety by
a reductive group. By definition, such a map consists of a
holomorphic principal bundle, together with a section of the
associated bundle. From the symplectic point of view, suitable
moduli spaces of such pairs are known as moduli spaces of {\em
symplectic vortices}. The workshop is organized around this
specific direction, with an aim to bring together researchers in
algebraic and symplectic geometry who have had no previous
interaction. On the other hand, the workshop will promote
discussion of the interaction of holomorphic maps, gauge theory,
and group actions more broadly. Applications of the theory are
expected for instance, to the relation between Gromov-Witten
theories of different varieties, and to the relation between the
gauge-theoretic invariants such as Floer-Donaldson invariants and
their symplectic analogs.

We propose a workshop which will bring together gauge theory and
holomorphic curves. Gauge theory is the study of local symmetry
in mathematics and physics; the most famous example is
electromagnetism. Holomorphic curve techniques aim, in algebraic
geometry, to understand spaces by understanding the certain
classes of curves in them, or in symplectic geometry, to
understand the periodic orbits of dynamical systems. Symmetry of
the target varieties may be used as a computational tool, and
also combined with holomorphic curves to define new invariants.
The workshop will focus on recent developments and emerging
applications to algebraic geometry, symplectic geometry, and
low-dimensional topology. The workshop will benefit a number of
graduate students and postdoctoral fellows working in this area
who have had little interaction with other groups working on
related problems.

The conference web-page controlled by the organizers is
www.math.rutgers.edu/~ctw/Luminy, while that controlled by the
conference center CIRM is
www.cirm.univ-mrs.fr/web.ang/liste_rencontre/Rencontres2009/Renc346/Renc346.html.